The Deadline Effect and Related Bargaining Phenomena: Some Experimental Studies

This project is part of a rapidly growing body of research that uses laboratory experiments to test and enrich economic theory. In this case the economic theory is the game theoretic approach to bargaining. In a series of earlier experiments in which relatively unstructured bargaining was allowed to proceed during a fixed time period, there was a striking concentration of agreements reached in the very last seconds before the deadline. The "deadline effect" appears to be quite robust, in the sense that the distribution of agreements over time appears to be much less sensitive to the various experimental manipulations than is the distribution of the terms of agreement or the frequency of disagreement. The experiments in this project are designed both to obtain a better understanding of the effect of deadlines, and to investigate particular hypotheses raised by various parts of the theoretical literature. The experimental research will continue to investigate the robustness of the observed deadline effect to changes in the mechanics of bargaining and to different kinds of deadlines. For example, the sharp deadline used in earlier experiments is replaced by a deadline after which there is a positive and rising probability that the game will end abruptly. One of the main hypotheses is that the deadline effect arises out of a screening effect similar to what is seen as separating equilibria of incomplete information models. This project derives and experimentally tests a theory about what factors might be screened for. Last-minute agreements are neither uncommon nor overwhelmingly difficult to observe in naturally occurring negotiations. But the deadline effect is not predicted or explained by standard bargaining theories. This project provides the first scientific study of deadline effects and it extends bargaining theory to capture the factors which cause deadline effects to occur.